RPG: Endocytosis of the Receptor for Gastrin Releasing Peptide: Characterization, Mechanism and Functional Significance

9510314 Grady Peptide hormones bind to their receptors on the cell surface, and induce diverse activities including secretion, muscle contraction, and growth. Cells rapidly alter their ability to respond to a given peptide. This study examines processes that alter the ability of a cell to respond to one peptide hormone, gastrin releasing peptide. This peptide is interesting since tumor cells secrete this hormone, and grow in response to it. Thus, information gained my help develop new cancer therapies. The principal investigator has shown that binding of gastrin releasing peptide to its receptor causes both the hormone and its receptor to move into the cell, or internalize. The receptor gradually returns to the cell surface, a process called recycling. Now, the principal investigator is studying these processes in cells that grow in response to gastrin releasing peptide. The intracellular location of the receptor is being determined by microscopy, using fluorescent peptides and antibodies. How internalization and recycling occur is being studied using drugs that block cellular processes, such as protein synthesis. The role of internalization in changing the ability of a cell to respond to gastrin releasing peptide is being studied by using (1) agents that block this process, and (2) cells that have mutant receptors that cannot internalize, and testing the ability to bind and signal with gastrin releasing peptide. Finally, the ability of drugs that block these processes to alter the growth response to gastrin releasing peptide is being determined.